Experimental Study on Damage Identification of Dynamically Excited Structures

Abstract

There is an increasing interest in the vibration data-based detection, localization, and
quantification of damage in civil engineering structures exposed to earthquake, wind, and other
loads. Early motivation for this was provided by the discovery of hidden damages in steel
structures caused by the 1994 Northridge and 1995 Great Hanshin (Kobe) Earthquakes, and also
by the fact that structural element are usually inaccessible after construction. Several analytical
methods have been proposed in the literature and still more are being developed for this.
Currently simulated data are being used to check the effectiveness of these methods; however,
their validation and comparison on actual experimentally obtained data is yet to be done.
In this exploratory project, it is proposed to experimentally study and validate the
effectives of the autoregressive with exogenous input model, wavelet transform, eigensystem
realization algorithms (ERA), and subspace identification (SSI) approaches for comprehensive
modal and damage identification of civil engineering structures. For damage localization and
quantification the flexibility and rotational flexibility matrices with and without and damage locating
vectors will be used. Further analytical improvements in these methods will also be made for
more reliable damage quantification. The tests will be conducted on a scaled three-story, nine
degrees-of-freedom structure model prepared such that its stiffness properties can be changed
by planned changes in one or more braces, by sudden removal of one or two braces in real-time
using magneto-rheological dampers, and by loosening the connecting hardware at few selected
joints. The major cost of preparing this changeable scaled model will be borne by the PIs
institution. The scaled model will be excited at its base by the 5' by 5' shaking table at Virginia
Tech. The model would also have the capability of being excited by shakers installed at any of
the three levels. The dynamic measurements of the acceleration response will be made using
ten accelerometers, three placed at each floor level in two orthogonal directions plus one on the
table.

The SGER funding is being sought to identify validated damage localization and
quantification methods which will be needed in a more comprehensive follow-up study. This
follow-up study to be proposed later will develop an integrated system consisting of the validated
damage identification techniques with online consequence prognosis followed by online
actuation, if necessary, of a control system to maintain the performance of the structure at an
acceptable level. The successful outcome of this exploratory work will also be a very useful tool
for direct practical implementation in structural diagnostics and health monitoring.

The Intellectual merit of this study is in the development of experimentally verified
damage identification (detection, localization, and quantification) schemes for a comprehensive
structural health monitoring.

Broader impacts of this research will occur at two levels: the
education and training of graduate and undergraduate students and the availability of a much
needed tool and data to researchers and practitioners involved in structural health monitoring. A
graduate student and an undergraduate student will work on this project. The undergraduate
student will be supported through the REU program. She/he will be selected through the Center
for the Enhancement of Engineering Diversity (CEED) at Virginia Tech from the pool of available
African American, Hispanic, American Indian, and women students. The dissemination of
information and data generated in this research to other students, researchers and practitioners
will be done through class room teaching, website creation, presentations in conferences, and
publications in archival journals and conference proceedings.